Improved System Identification and Assessment Procedures for Direct Sensing, Analysis and Real-Time Diagnosis

9523304 Jones The project will design and develop an integrated sensor system coupled with a compatible design tool that will enable real-time, interactive assessment of the structural state of a complex mechanical or structural system. The components of this diagnostics tool are: a Kalman-filter identification model, an accelerometer-based sensor system and a generalized partially observable Markov design process model. The broad applicability of the system includes structural problems associated with extending the lifetimes of power generating facilities; real-time monitoring and assessment of complex power transmission and piping systems; and modeling and control of signal and control of system instability. ***